ITR (NHS, ECS, int): Profile-Aware Web: Rules, Proofs, and Trust on the Semantic Web

Tim Berners Lee has defined the semantic web to support machine understandable web pages. Much of the development in semantic web has been on standards for XML (eXtensible Markup Language), RDF (Resource Description Framework), Ontologies and Information Interoperability. For the semantic web to be useful in an operational environment, it has to be dependable. By a dependable semantic web we mean a semantic web that is secure, privacy-enhanced, manages trust, processes information in real-time and ensures high quality data.
The objective of this project will be to investigate policies for the semantic web. In particular, the web rules language will be expended to include the specification of security and privacy policies. The project will also develop an inference engine to reason about the policies. Privacy and trust policies for the semantic web and develop algorithms to enforce the policies.